Interactions of Particles and Fields (Physics)

The research of this group of theoretical high energy physicists at Harvard University consists of: (a) the appli- cation of quantum field theory to a variety of current problems in particle physics; (b) the application of astrophysical data and cosmological constraints to particle physics, and (c) an investigation of the properties of the "string theory" of ele- mentary particles. Subjects to be addressed in (a) include: symmetry breaking and "flavor" interactions; grand unification; quantum chromodynamics; and semiclassical effects in field theory. Subjects to be addressed in (b) include: neutrino masses and mixing; galaxy formation; and inflation. Subjects to be addressed in (c) include: connections between string theory and developing fields of mathematics and mathematical physics; search for new insights into formal properties of quantum field theory; new mathematical structures of potential use in physics; unexpected answers to questions that have been intractable in the standard effective field theory context.